SBIR Phase I: Enabling Real-Time AI on End Devices through Compression-Compilation Co-Design

The broader impact of this Small Business Innovation Research (SBIR) Phase I project is in the array of new opportunities it creates for expanding uses of machine intelligence. By providing an efficient way to transform deep learning models to best fit the constraints on end devices and real-time applications, this project will shorten the time to market for artificial intelligence applications by orders of magnitude, and hence significantly accelerate the development and deployment of intelligent software in health, commerce, financial, defense, social networks, and many other areas.

This Small Business Innovation Research (SBIR) Phase I project aims to address the important barriers for efficient development of real-time Artificial Intelligence applications on end devices (smartphones, drones, etc.). It does this through a breakthrough technology, compression-compilation co-design. Compression and compilation are the two key steps in fitting a deep learning model on a hardware for efficient execution. Model compression reduces the size of deep learning models; compilation generates executable codes from a given deep learning model. The principle of compression-compilation co-design is to design the two components for AI in a hand-in-hand manner. The technology uses a novel approach to synergize a set of novel model compression methods with compression-aware code compilation techniques. The result is a technology that achieves several-fold higher artificial intelligence model compression rates over the state of the art, several times faster speed, better energy efficiency, and satisfying accuracy.